In-Situ Reversed Deformation Experiments in the High-VoltageTransmission Electron Microscope

This proposal examines the fatigue process in metal single crystals using transmission electron microscopy to observe dislocation dynamics. The investigator plans in-situ reverse deformation experiments in a high voltage transmission electron microscope (HVEM). A unique loading instrument has been devised to avoid buckling of the specimens under stress reversal, a problem normally encountered with this type of test. The fatigue process and associated dislocations are imaged during strain reversals in relatively thick foils to provide insights into the fundamental nature of fatigue and related Bauschinger effects. %%% This research offers new capabilities for observing the fatigue process in metal alloys. The technique should allow observation of the motion of dislocations over a significant range and should provide new insights to the fatigue process.